Prehispanic Chiefdoms in the Valle de la Plata, Colombia

With support from the National Science Foundation, Dr. Robert Drennan has conducted wide-scale archaeological site survey and limited test excavations in the Valle de la Plata which is located in the Alto Magdalena region of Colombia. This area is particularly famous for the remarkable corpus of sculpture attributed to the "San Agustin culture." These characteristically are associated with stone tombs and include grinning human faces with feline fangs and larger than life-size human figures. Because these materials were usually recovered through looting, their original context is often unknown. In the course of his research, Dr. Drennan has traced the rise of San Agustin culture from the first millennium B.C., through ca. 700 A.D. when production of statues and tombs reaches a peak, and into a later period when variation in burial custom indicates marked status variation. Through this process he is able to trace the rise of social differentiation and the development of a large-scale chiefly society. In his current project, Dr. Drennan will continue this work. He will analyze ceramics collected, expand a soil study to determine agricultural potential, analyze the relationship between settlement distribution and agricultural resources, date radiocarbon samples, and identify carbonized plant remains. Through this work he will gain increased insight into chronology as well as the settlement and subsistence practices of this prehistoric group. This research is important for several reasons. Archaeologists who work in Middle and South America are extremely interested in the data which Dr. Drennan will produce. The results will increase our understanding of how social complexity develops and chiefdom level societies arise and are maintained. Finally, because it includes graduate students, this research will aid in the training of young scientists.